The Multidisciplinary Equipment Enhancement Project

ABSTRACT CTS-9871406 Kathleen Johnston, Steven A. Jones, James L. Maxwell Louisiana Tech University Title: The Multidisciplinary Equipment Enhancement Project Louisiana Tech University will purchase research equipment to be shared by a multidisciplinary team headed by Prof. K. Johnston. The university will cost-share over 45% of the acquisition. The equipment includes a Cosmic Ray Test Stand with Data Acquisition, a Circuit Board Design Station, a Particle Image Velocimetry System, a Laser Doppler Velocimetry System, and a Computer-Network System. The shared instrumentation will be managed by the Center for Applied Physical Studies at Louisiana Tech University, for research in Particle Physics, Fluids Engineering, Micromanufacturing and Biomedical Engineering. The four groups are linked at the project level, for example in the Positron Emission Tomography project.